Geometry and Dynamics in Riemannian and Finsler Spaces

Abstract

Award: DMS-0412166
Principal Investigator: Dmitri Burago

D. Burago proposes to continue his work on a number of long-term
projects in Riemannian and Finsler geometry, dynamical systems of
geometric origin, and geometric group theory. The projects
include: geometry of periodic metrics, area-minimizing surfaces
in normed spaces and minimal fillings, and ellipticity of surface
area functionals; low dimensional partially hyperbolic
diffeomorphisms; unbounded bi-invariant quasi-semi-norms and
"large" groups; manifolds without conjugate points; applications
of singular geometry to dynamics of billiard systems and certain
algorithmic problems of geometric origin; and approximations by
PL-isometries. Among the problems the proposal is aimed at there
are: Busemann's Conjecture that flats are area-minimizing
surfaces in normed spaces; styding the structure of the class of
partially-hyperbolic systems; finding weak versions of Hofer's
norm (possibly on some groups of volume-preserving
homeomorphisms); various generalizations of E.Hopf's conjecture
on tori without conjugate points. This project continues the
proposer's previous research, including a solution of the E. Hopf
conjecture on tori without conjugate points posed by Hedlund and
Morse in the 40s, a "Boltzman-Sinaj" problem on the existence of
uniform estimates on the number of collisions in hard ball gas
models, the two-dimensional case of H. Busemann's problem
mentioned above, H. Furstenberg's problem on the existence of
bi-Lipschits non-equivalent separated nets and J. Moser's problem
on the existence of a continuous function that is not a Jacobian
determinant of a Lipschits homeomorphism (all from the 60s). The
conjectures and directions of research suggested in the proposal
grew from ideas and methods developed by the proposer and his
collaborators while working on these problems.

Even though most topics of the proposal belong to rather abstract
areas of mathematics, their motivations lie in real-word
problems. The physical analogs of large-scale invariants of
periodic metrics are macroscopic properties of periodic media
(such as crystal substances: i.e., the rate of propagation of
radiation etc), and one wants to relate these properties to
microscopic characteristics. Hyperbolic dynamics is really well
understood, and it forms the first and the simplest example of
chaotic models; however, little is know about partially
hyperbolic systems, which offer a much more realistic model; the
project is aimed in giving new insight into such systems with a
small number of degrees of freedom. The "Boltzman-Sinaj" problem
on the existence of uniform estimates on the number of collisions
in hard ball gas models originated from the most basic research
in statistical physics. Study of the geodesic flows, billiard
systems, geometric complexity, and optimal strategies may result
in better understanding of (stability) of certain models in
thermodynamics, biology, sociology, and physics, especially when
dealing with imprecise data, and perhaps result in new
computational algorithms.